Applications of Variational Fracture: Enhanced Geothermal Systems

Bourdin
DMS-0908267

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5).

Enhanced geothermal systems represent a virtually untapped,
clean, renewable, economically viable, and widely available
source of energy. They rely on harvesting heat by circulating
water through artificially stimulated fracture systems in deep
hot dry rocks. This project provides a predictive understanding
of the mechanisms commonly used to generate these systems:
pressure- and temperature-driven fracture. The modeling and
analysis are based on a variational fracture formulation, which
has been developed over the last ten years or so and has strong
mathematical and mechanical foundations. The investigator
extends this formulation to dynamic fractures and improves its
implementation on parallel supercomputers. He extends its scope
by studying and implementing two approaches to the penalization
of material interpenetration along crack lips. He develops
variational models for the pressure- and temperature-driven
fracture problems, approximates them using the idea of
Gamma-convergence, implements the regularized models on parallel
supercomputers, and conducts large scale realistic validation
experiments that are compared with existing engineering
literature. This project is a first step in a nascent
multi-disciplinary initiative fostered through the Center for
Computation and Technology at LSU, involving mathematicians,
computational scientists, and engineers. It supports the
participation of two undergraduates and one graduate student per
year.

As the Nation strives to reduce its carbon footprint,
protect its economy from fluctuating oil prices, and increase its
energy independence, Enhanced Geothermal Systems (EGS) represent
a virtually untapped, clean, renewable, economically viable and
widely available source of energy. They rely on harvesting heat
by circulating water through artificially stimulated, highly
connected fracture systems in deep hot dry rocks. A recent
MIT-led interdisciplinary assessment panel commissioned by the
Department of Energy estimates that even without major technical
breakthroughs EGS could cover 20% of the estimated US electricity
needs by 2050, in an economically viable way and with only
marginal carbon emission and land use. A major technical issue
identified in this report is the creation of sufficiently
connected fracture systems. The investigator develops a
predictive understanding of two mechanisms commonly used to
generate these systems: pressure- and temperature-driven
fracture, based on a mechanically faithful and mathematically
sound variational formulation of fracture developed over the last
decade. This model is extended to account for the specifics of
EGS, then implemented on parallel supercomputers. Large scale
numerical simulations are performed using the cyberinfrastructure
provided by the TeraGrid, to allow EGS designers to devise
stimulation patterns maximizing the efficiency and sustainability
of new systems. This project is a first step in a nascent
multi-disciplinary initiative fostered through the Center for
Computation and Technology at LSU, involving mathematicians,
computational scientists, and engineers. It supports each year
the participation of two undergraduates and one graduate student.